Dissertation Research: The Lough Swilly Archaeological Survey

9320499 Price Under the direction of Dr. Douglas Price, Mr. Michael Kimball will collect data for his doctoral dissertation. Working with a team of volunteers, he will conduct systematic survey of the Lough Swilly region of County Donegal, Ireland. Researchers will walk over large areas of exposed ground and note stone tool scatters and other archaeological occurrences. On the basis of artifact types, many of these can then be dated to time period. The data will be plotted and analyzed by Geographic Information System. In this way it will be possible to reconstruct settlement patterns in different time periods and relate these to geographic features. The work will reveal the shifting interaction between landscape and human society and relate changes to subsistence technique. Mr. Kimball will focus on the period of the Mesolithic-Neolithic transition. The former, which follows immediately on the end of the last glaciation marks the end of a hunting and gathering way of life in Northern Europe. In the succeeding Neolithic period, populations adopted a lifestyle based on domesticated plants and animals. Archaeologists wish to understand how this change took place and how it affected human use of the landscape. It is unclear whether population replacement occurred or whether Mesolithic inhabitants gradually incorporated agriculture and pastoralism into a hunting and gathering way of life. Mr. Kimball's work will help to answer this question. This research is important for several reasons. It will provide data of interest to many archaeologists. It will shed new light on human change and adaptability and how humans interact with the natural environment. It will also assist in the training of a promising young scientist.